A Computational Framework for Multi-Rigid-Body Dynamics with Contact and Friction

This research investigates fundamental challenges in creating
multi-rigid-body simulation environments that have a robust and
realistic behavior for a large class of configurations and
interactions. The problem specifically targeted by this proposal is
the difficulty, due to the apparent lack of solutions of the resulting
model, in consistently formulating and efficiently solving the
constrained Newton laws of mechanics when Coulomb friction is
involved. Recent results, partly developed by the author have shown
that a well-defined numerical approach is possible in an
impulse-velocity complementarity formulation. The proposed research
addresses the need to integrate recent developments in the study of
models of friction with advanced numerical integration and
optimization techniques. The complementarity formulation will play a
central part in this project but alternative methods will also be
explored. The algorithms developed will accommodate numerical issues
rarely approached in a complementarity setting such as stiffness and
constraint drift control. Several specialized optimization methods
will be designed to address distinguished problems that appear in a
constrained simulation, such as constraint stabilization in presence
of contact degeneracy.

This research will overcome essential difficulties in all areas of
investigation that depend on the correct simulation of the motion of
objects in contact with friction such as robotics, virtual reality,
biomechanics, manufacturing design. In all these areas, contact with
friction is a fundamental component, whether it is related to the user
pushing or pulling a stack of virtual objects in frictional contact
with one another in virtual reality, to a robot grasping and
manipulating a load, or to the correct simulation of human walking
where friction is necessary to prevent slipping. Yet in spite of the
omni presence of contact and friction in everyday life its simulation
has proved to be very difficult, partly because of the lack of a
consistent and efficient theoretical and computational framework. It
is the aim of this proposal to extend the recent results in frictional
contact modeling in directions that will answer the requirements of
high-quality, high-performance multi-rigid-body dynamics simulation for use
in robotics, virtual reality, manufacturing design and other fields.
This will enable the development of software that will become
an important component of the manufacturing infrastructure of the future.